Request for Controlled Environment Furnace for Materials Characterization Within Agressive Environments

9500304 Sutton This Research Equipment Grant is made to partially fund the purchase of a controlled environment furnace. The furnace will be used for the long-term effort in the life assessment of superalloys at elevated temperatures. Data will also be collected on the evolution of microstructural changes under various loading and environmental conditions. ***